Cells - In - Frames

9528276 Cogger Cornell University requests funding for research and development in the area of ATM over low-cost media. In particular, they will explore "Cells in Frames," the transport of ATM over ethernet media. Initial investigations made them confident that the concept is workable and would be highly beneficial. With industry partners, Cornell will develop a prototype network, large enough for a significant demonstration, which will include low cost CIF access devices and diverse end system environments. They will test its effectiveness and develop prototype applications.